Seismic Characteristics of Sediments in the New Madrid Seismic Zone

The objective of this research program is to develop a comprehensive data base on the modulus and damping characteristics of surficial soils in the Mississippi embayment region - which is recognized as a high seismic hazard area associated with the historic New Madrid earthquakes of 1811-12. The New Madrid seismic zone (NMSZ), located at the northern edge of the embayment, is well known for its seismically active buried faults. The earthquakes that occur in the NMSZ are characterized by a long recurrence period and low seismic wave attenuation (the effect of an earthquake is felt at large distances from the epicenter). The damaging effects of earthquakes are intimately associated with the dynamic properties of the surficial soils, most notably the stiffness and damping properties. These properties are a major component to regional seismic risk assessment studies. The damage is most often a result of amplification of the ground surface shaking as a result of the coincidence between a natural mode of the soil profile and the dominant frequency of incident seismic waves; or of the liquefaction of water-saturated granular deposits near the ground surface. The dynamic soil properties for the data base come from several sources: the laboratory test program; data and soil samples provided by local sources; and field work to collect special soil samples. The data have many applications in earthquake hazard mitigation, including the design of earthquake resistant structures, the retrofit of existing structures, and revision of the current building codes for the urban development projects in the Mid-south.